Mathematical Sciences: Spectral Invariants of Non-Simply-Connected Manifolds

This award will support research in three related areas: topological invariants of non-simply-connected manifolds derived from heat kernels on covering spaces, higher signature extensions of spectral invariants, and Riemannian geometry on noncommutative spaces. The last area is connected with mathematical aspects of particle theory and mathematical physics. The relationship between local information and global topological information is fairly well understood on compact surfaces or manifolds. The situation in the noncompact or unbounded case is much more difficult. This research involves trying to understand this relationship in cases in which the noncompact space is related to a compact space in a precise manner.